U.S.-Mexico Cooperative Workshop on Mathematical Software; July 19-23, Mexico City, Mexico

9305820 Lomen This Americas Program award will support a regional program development workshop on the uses of technology in the undergraduate mathematics curriculum. The workshop, which is jointly organized by Prof. David Lomen of the University of Arizona and Prof. Luis Manuel Tovar of the Instituto Politecnico Nacional (IPN) in Mexico City, will introduce participants to existing mathematical software, discuss ways in which it can improve the teaching and learning of mathematics, and explore new ways of using technology in the classroom. Expected outcomes of this workshop are: bilingual educational materials on the use of technology in mathematics instruction; development of an Internet interest group and bulletin board facility to link participants and future collaborators via existing networks in Mexico and in Latin America with the U.S.; and future collaborations between leaders in software development, mathematicians, and math educators of the hemisphere. ***